BPC-A: Widening the Research Pipeline

The Computing Research Association's Committee on the Status of Women in Computing Research (CRA-W) has been awarded a Broadening Participation in Computing grant to build an alliance with the Coalition to Diversify Computing (CDC). The alliance will be implementing and evaluating programs to increase the participation of women and minorities in computing research.

Projects that will be made possible by this award include:

Discipline-specific Mentoring Tracks to provide appropriate mentoring and to build communities of researchers from under-represented groups within the context of specific research areas,

Coordinated Research Mentoring Programs to provide the most effective research experiences for undergraduates to encourage them to apply and enhance their chances of admission to graduate school in Computer Science and Engineering (CS&E),

A new Extended Mentoring Program to help continue and foster some of the mentoring relationships initiated by these and other programs offered by CRA-W and CDC, and

A new Traveling Lectureship Symposium to bring outstanding women and minority speakers to institutions without a large number of visiting researchers or women or minority faculty.